Lefschetz fibrations in symplectic topology and applications to mirror symmetry

DMS-060148
Denis Auroux

Denis Auroux's research project aims to use Lefschetz fibrations, branched
coverings, and their monodromy invariants (mapping class group or braid
group factorizations) to study the topology of symplectic 4-manifolds.
In particular, Auroux is studying isotopy and non-isotopy phenomena for
singular symplectic curves, the relationship between complex projective
surfaces and symplectic 4-manifolds, and the role of Luttinger surgery
along Lagrangian tori in this context. This leads him to explore some
algorithmic aspects of monodromy invariants, most notably algorithms for
manipulating braids and braid factorizations, and the Hurwitz problem.
He also plans to investigate enumerative invariants for Lefschetz
fibrations over the disc, and the relation between the contact homology
of a contact manifold equipped with an open book structure and the Floer
homology of its monodromy. In a different direction, Auroux is exploring
Kontsevich's homological mirror symmetry conjecture and some of its
generalizations, building upon recent joint work with L. Katzarkov and
D. Orlov. The main ingredient is the study of Landau-Ginzburg models and
their symplectic geometry, in order to understand mirror symmetry for some
examples of varieties of general type and explore various constructions
in algebraic geometry from the perspective of homological mirror symmetry.

Symplectic manifolds are geometric spaces with special structures (allowing
area measurements, but not distance measurements). While they first arose
in the Hamiltonian formulation of classical mechanics, mathematicians have
recently become very interested in their geometry and topology (their
intrinsic "shape"), in part due to motivating questions from theoretical
physics (string theory). This project aims to study the topology of
symplectic manifolds using an approach developped first by S. Donaldson
and subsequently by Auroux, which consists in projecting them onto simpler
manifolds and studying the points where this projection is "folded".
This yields a complete description by combinatorial data, reducing much
of the geometry to purely algorithmic considerations. One of the main
goals of the project is to relate the topological features of symplectic
manifolds with those of complex algebraic manifolds (a more special, much
better understood class of geometric spaces). In addition, Auroux is also
investigating the phenomenon of mirror symmetry, by studying the symplectic
geometry of spaces that are "mirror" to some well-understood families of
complex manifolds; this is an important question at the interface between
mathematics and theoretical physics.